he I/UCR Center for Information Management Research

The Industry/University Cooperative Research Center for Information Management Research at the Georgia Institute of Technology in collaboration with the University of Arizona will support research that integrates information system concepts into end-user computing research. It will emphasize the application of information systems theory to the current and future business and government environments. It will promote the integration of advanced information technologies in storage, retrieval, transmission, etc., with traditional information systems, and develop a framework for the management of information systems which is consistent with the organizations' management systems. This Center was coordinated with Dr. Stephen Wolff, Division of Networking and Communications Research and Infrastructure. The Program Manager recommends that the Georgia Institute of Technology in collaboration with the University of Arizona be awarded $200,000 each year of a five-year continuing grant. The Army Institute for Research and Management Information Communications and Computer Sciences (AIRMICS) is providing a $100,000 per year to co-sponsor the Center. Near the end of each 12-month period, the Program Manager and/or the Director of The Engineering Centers Division will review the progress of the Center on a number of renewal criteria, including the following: (1) extent to which university/industry interaction and collaboration is developing; (2) extent to which the support base for the center is expanding; (3) extent to which a robust research program is developing. If review is satisfactory, the Program Manager will recommend support of the next period of this continuing grant.